A Relevant Mathematics Curriculum for Today's Science and Engineering Students

Mathematical Sciences (21) This Type II project is supporting a conference of mathematical scientists from across the country to reconceptualize the undergraduate mathematical sciences curriculum in light of two influences: firstly, the increased role that symbolic and numerical computation plays in research; and secondly, the increased interdisciplinary nature that characterizes advances in the physical sciences and engineering. Participants expect to identify and delineate goals, obstacles and strategies, and engage in follow up visits to participating institutions to pursue collaborative adaptation and implementation efforts.